Preferences, Beliefs and Behavior Under Subjective Uncertainty

This project concerns the applicability of the classical theory of choice under subjective uncertainty to individuals. Two distinct behavioral properties are implied in the classical paradigm. The first is the property of probabilistic sophistication, i.e., acts are evaluated solely on the basis of their implied subjective probability distributions to an individual over outcomes. The second property, expected utility maximization, maintains that these implied probability distributions over outcomes are ranked by means of a von Neumann-Morganstern utility function and concerns only the individual's attitudes toward risk. This research looks at individuals who are not probabilistically sophisticated in that their choice behavior is neither derived from nor observationally consistent with the existence of an underlying subjective probability distribution over uncertain events. Two distinct but compatible analytical approaches to this problem are studied. The first characterizes probabilistic sophistication in the absence of the expected utility hypothesis. The second develops the notions of a local probability distribution and local risk preferences and examines the extent to which these concepts can be used to characterize the global properties of non- probabilistically sophisticated preferences. These analytical tools will then be used to explore the general robustness of the concepts and results of the classical paradigm to departures from probabilistic sophistication, and to study cases of induced violations of probabilistic sophistication. For example, group decision making with heterogeneous beliefs and behavior under incomplete information such as the problems of moral hazard and adverse selection will be investigated. This research is very important because it tackles problems in an area central to theoretical and practical research in economics and management science.